Acquisition of Digitial Geophysical Equipment for University of Maine Sea-Level, Coastal and Lacustrine Research

9977367
Belknap
This Major Research Instrumentation award to University of Maine provides geophysical instrumentation for study of sea level and related coastal research. Consisting of a side-scan sonar system, seismic reflection profiler, digital data processing system and a vibracorer, it will be particularly used for research into evolution of coastal and nearshore systems and climate change in glaciomarine environments, especially the Gulf of Maine and adjacent environs. Research plans by University of Maine faculty and students will focus on the acquisition of data needed to model processes of change near former ice sheet margins. The facility plans to build on research partnerships developed over many years with state and federal agencies, private industry and other groups. The project is supported by the Division of Ocean Sciences at NSF. University of Maine will provide cost-share support for more than 40% of total project costs.
***